Chemistry of Polyoxy and Peroxy Compounds

In this one-year U.S.-Yugoslav cooperative research project in organic chemistry between Bozo Plesnicar, University of Ljubljana and Glen Russell and Tom Barton, Iowa State University and J.C. Martin, Vanderbilt University, the investigators will study the chemistry of organic saturated compounds, polyoxy and peroxy. This topic is of continuing interest in organic chemistry as peroxides are widely used in idustrial chemical processes (oxidants, bleaching agents, polymerization initiators). This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the governments of the United States and Yugoslavia. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal scientific institution in Yugoslavia, but include dollar funds for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.